Improvements to the Kansas State University Ornithology Collection

A grant has been awarded to Dr. Sandercock at Kansas State University to make
improvements to the Kansas State University Ornithology Collection. The Ornithology
Collection currently contains 1172 round skins, 188 mounts, 30-40 spread wings, and 20-30
nests that are a representative sample of the avifauna of the Great Plains ecoregion. The
collection holdings are valuable because they include many bird specimens that were collected in
Kansas during the late 1800s and early 1900s, including two specimens of the now extinct
Eskimo Curlew. The goal of this project is to conserve and improve the resources of the
Ornithology Collection for use in undergraduate teaching and public education.
The objectives of the project are threefold. First, an urgent need of the Ornithology
Collection is improved storage facilities. The study skins are currently stored in wood frame
cabinets that are at least 30 years old and not airtight. Mounts are currently housed in wooden
display cabinets that were salvaged when the collection was moved to Ackert Hall in 1969. A
majority of the direct costs of this grant (56%) are for new museum storage cabinets that will
ensure that the collection will be protected from insect damage. Second, another major need of
the collection is cataloguing of the existing specimens. The long-term goal for this collection is
to transfer or exchange older specimens of potential research value to major natural history
museums, such as the nearby Museum of Natural History at the University of Kansas. To
facilitate transfers, the contents of the Ornithology Collection will be inventoried into an
electronic database that will be made available on the Internet. A portion of the direct costs
(35%) will be used to hire and train three undergraduate curatorial assistants to complete this
task. Last, a final need for the collection is acquisition of new materials to replace older
specimens of research value. The remaining direct costs (9%) are for curatorial supplies to
prepare and store new materials.
This project is scientifically important because it will make the museum holdings of the
Kansas State University Ornithology Collection available to the scientific community for the
first time. Access to study skins will be of greatest value to researchers conducting retrospective
analyses of museum specimens, but the collection also contains valuable specimens that will fill
gaps in historical sampling efforts. The project will have broader impacts by offering
comprehensive training in the techniques of museum curation to three undergraduate students.
The resources of the Ornithology Collection also serve an important role in undergraduate
education and outreach programs for the public. Museum specimens are regularly used as
teaching materials in three core undergraduate courses in the Division of Biology: Principles of
Biology (Biol 198), Organismic Biology (Biol 201) and Ornithology (Biol 543). Avian
specimens are also an important resource for public outreach programs coordinated by the
Division of Biology. Mounts and study skins will be used in permanent exhibits in Ackert Hall,
in displays for annual open house events at Kansas State University, in displays for field trips of
grade school students from the Riley Town school district, and in environmental education
programs for K-12 students and teachers at nearby Konza Prairie Biological Station. Long-term
conservation of the museum holdings will benefit local communities in northeast Kansas.